REU: Undergraduate Research in Elementary Particle Physics, Accelerator Physics, and Synchrotron Radiation Science

The Laboratory for Elementary-Particle Physics (LEPP) at Cornell
University will provide 10 undergraduates with the excitement and challenge
of frontier research and with opportunities to acquire new skills and
meet researchers at all stages of their careers. The constellation of
programs includes elementary particle physics (part of the CLEO
Collaboration, studying fundamental questions of the weak and
strong forces), accelerator physics (using the CESR electron-positron storage
ring), synchrotron radiation science (both using the the existing x-ray
facility - CHESS - and designing new facilities) and microwave
superconductivity. The selected students will work closely with LEPP physicists and
participate in seminars, lectures, tours of campus facilities, and
activities designed to promote interactions among the many undergraduate
researchers at Cornell. Travel and housing allowances are given in addition
to a summer stipend.